Workshop on the Mumford Standard Class Conjecture at Stanford University, July and August, 2001.

DMS-0115014
Ralph L. Cohen

This award provides partial support for participants to attend a workshop to be held at Stanford University in July and August 2001. The scientific focus of the workshop will be centered around the Mumford Standard Class conjecture, one of the most important outstanding conjectures on the topology of moduli spaces. There has been considerable progress on this conjecture in the last few years from several perspectives, including Algebraic Geometry, Algebraic Topology, and Theoretical Physics. The workshop will bring together experts working on these questions. The workshop will culminate with
a five day meeting in August. Further information, including invited speakers, schedule of talks, and housing information, is available
at both http://www.aimath.org/ and http://math.stanford.edu